Nebraska Private College Connection to NSFNET

Eight private colleges in Nebraska are establishing connections to NSFNET via 56,000 bits per second lines through the MIDNET mid-level network. The connections enhance collaborations of campus researchers with colleagues in several fields such as biology, psychology, computer science and music, and enables on-line access to remote bibliography databases and supercomputers. This award funds part of the costs for two years.